Research Experiences for Undergraduates at Hope College

9322088 Silver Hope College Dr. Michael E. Silver and other members of the Chemistry Department of Hope College are being further supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6, eight undergraduate students will spend eleven weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry.